Bifurcation and Chaos in Driven Quantum Wells and Charge-Density-Wave Conductors

They will study nonlinear phenomena (NP) (e.g., bifurcations of chaos) in solids within the framework of the modern theory of nonlinear dynamical systems. Experiments will be performed at far-infrared and radio frequencies. A series of different-sized quantum wells will be driven with far-infrared (FIR) laser radiation. NP will be studied in the classical (large well) and quantum (small well) limits. Bifurcations, chaos and coupling between the FIR mode and the pinned charge-density-wave mode will be studied in the response of these materials to FIR laser radiation. Avalanche-depinning, chaos, and an apparent self- organization from many- to few-degree-of-freedom dynamics will be studied. These projects should extend the understanding of NP beyond classical systems with few degrees of freedom and provide valuable insights into the physics of solids.